Collaborative Research: New Catalytic Design Strategies for the Regiocontrolled Functionalization of Complex Molecules via SEAr and Related Reactions

Drs. Gustafson of Stony Brook University and Mao of San Diego State University will develop new catalytic technologies that could make the production of medicines, advanced materials, and specialty chemicals more efficient, selective, and sustainable. Many important products used in healthcare, agriculture, and electronics rely on aromatic molecules, but current manufacturing methods often require many chemical steps and can generate significant chemical waste. In addition, existing methods used to directly modify complex molecules frequently produce mixtures of unwanted products, making it difficult and expensive to create improved versions of pharmaceuticals and other valuable chemicals directly from available materials. This project will center around the synergistic use of computational chemistry and synthetic chemistry to design novel catalysts that can precisely control where functionalization occurs in aromatic compounds. The results will support innovation in advanced manufacturing by developing novel chemical processes that can create higher-performance products using fewer resources and with greater precision. The broader impacts of this project will include workforce development via the training of students at all levels in organic synthesis and computational chemistry, as well as the development of innovative educational approaches leveraging virtual and augmented reality.

Arenes and heteroarenes are among the most important building blocks in modern chemical synthesis and are widely used in pharmaceuticals, materials, and specialty chemicals. Although many established methods exist for modifying aromatic compounds, these approaches often require pre-functionalized starting materials, increasing the number of synthetic steps, cost, and chemical waste. Electrophilic Aromatic Substitution (SEAr) provides a more direct strategy for aromatic functionalization, but these reactions often suffer from poor regiocontrol, frequently producing mixtures of constitutional isomers, particularly in complex molecules that contain multiple reactive sites, such as pharmaceutical intermediates. Over the past decade, Dr. Gustafson’s group has demonstrated that Lewis base catalysts can control the regiochemical outcome of SEAr reactions on simple aromatic systems; however, extending this control to structurally more complex substrates remains a significant challenge. This project will leverage the synergistic use of computational and synthetic chemistry to design, develop, and understand a new class of multifunctional SEAr catalysts. These catalysts will combine multiple electrophile activation strategies with noncovalent molecular interactions to selectively install synthetically valuable functional groups onto both simple and complex aromatic compounds, thereby expanding the toolbox for efficient and selective chemical synthesis. Advanced computational methods will be employed to guide the design of noncovalent interactions for precise regiocontrol and to enhance the reactivity of these catalysts under photochemical and electrochemical conditions.